Software Testbed for Research in Real-Time, Reliable Systems

The Real-time Reliable (RR) Systems Project at Cornell is concerned with constructing software for process control applications, where failures can result in property damage and loss of life. This effort will improve documentation and distribution of a testbed used in this research. The testbed will be useful to researchers who wish to evaluate approaches to design, specification, and fault-tolerance of real-time systems. It will also be useful in teaching, because it can be used as a basis for laboratory exercises in a real-time systems course.